NSF Young Investigator Award

This is a study of magnetic properties of uniform ultrafine particles and their arrays fabricated by micro-electronics facilities. The objective is to understand outstanding problems such as, magnetic perpendicular anisotropy, magnetic internal structures, finite size effects, and macroscopic magnetic orderings, all are crucial to the potential applications of these novel structures.